Teaching and Learning Geometry for Understanding

; R o o t E n t r y F k 6 C o m p O b j b W o r d D o c u m e n t , O b j e c t P o o l > 5 > 5 4 @ ! " # $ % & ' F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; `` ` ``` `` ` ``` `` `` `` `` `` `` `` `` `` `` `` `` This project is design to develop and study a model-based approach to teaching and learning geometry for understanding in the elementary grades. The study will focus on third grade students and combine this study s data with that of a previous one to yield a mini-longitudinal study of changes in children s spatial reasoning from the second through third grades. The PIs will develop and explore a challenging but feasible third grade geometry curriculum that builds on second graders enhanced understanding as well as examine classroom practices that support model elicitation and model exploration. ; S u m m a r y I n f o r m a t i o n ( Oh +' 0 $ H l D h R:\WWUSER\TEMPLATE\NORMAL.DOT This project is design to develop and study a model-based approach to teaching and learning geometry for understanding in the elementary grades. The study will focus on third grade students and combine this study s data with that of a previous one to yi Sadie R. Jones Sadie R. Jones @ %: @ @ %: @ F # Microsoft Word 6.0 2 ; e = e , j j j j j j j x 1 Z T / x j x j j j j ~ j j j j 3 This project is design to develop and study a model-based approach to teaching and learning geometry for understanding in the elementary grades. The study will focus on third grade students and combin e this study s data with that of a previous one to yield a mini-longitudinal study of changes in children s spatial reasoning from the second through third grades. The PIs will develop and explore a challenging but feasible third grade geometry curriculum that builds on second graders enhanced understanding as well as examine classroom practices that support model elicitation and model exploration. K @ Normal a " A@ " Default Paragraph Font 3 Sadie R. Jones!\\CLM5\REDPUB\BLOVITTS\LEHRER.DOC @HP LaserJet 4L LPT1: HPPCL5E HP LaserJet 4L D k